ITR---Reinventing Artificial Intelligence

The Genesis Group of the MIT Artificial Intelligence Laboratory is working
on a computational theory of human intelligence. Their work is grounded in
two key assumptions: first, that humans think with their language, vision,
and motor systems, and their interaction; and second that humans can think
abstractly because they can build on a foundation of thinking about concrete
events in the physical world.

Their plan includes the development of a testbed that features paths,
agents, causes, both language and visual inputs and outputs, complex state
transitions, and support for abstract reasoning in abstract worlds.

They propose to exploit both symbolic and nonsymbolic representations. The
symbolic representations will include a representation for describing the
movement of animals and artifacts along trajectories and a representation
for describing state transitions in terms of a vocabulary of qualitative
changes. The nonsymbolic representations will include memory traces lying
close to experienced sensory inputs.

The Genesis Group expects success to lead not only to a better
understanding of natural intelligence buy also, in the long term, to
important practical results, such as computer applications with genuine
commonsense and educational applications that exploit an understanding of
how best to engage human linguistic and visual problem solving faculties.